Travel To Attend: Fifth International Conference on Physico-Chemical Hydrodynamics; Tel-Aviv, Israel; December 16-21, 1984

Partial travel support is provided to allow a participant to attend the Fifth International Conference on Physico-Chemical Hydrodynamics, to be held in Tel-Aviv, Israel, December 16-21, 1984. The participant will present a paper at the conference and will hold scientific discussions with scientists of similar interests at four Israeli institutions.